CRCD/EI: An Undergraduate CS Specialization in Knowledge Management Systems

0417528
Argamon, Shlomo
Illinois Institute of Technology
"CRCD/EI: An Undergraduate CS Specialization in Knowledge Management Systems"
$269,999

This project involves a specialization option in Knowledge Management Systems, housed in an undergraduate Computer Science curriculum. Knowledge Management (KM) theory and techniques have taken on increasing importance in our information society. The core areas of KM are text analysis, data mining, and information retrieval, requiring students and practitioners to understand the fundamentals of algorithms, statistics, machine learning, human-user interaction, and be familiar with what commercial products exist and have some experience using those products. This project builds on this institution's successful integration of new courses in Information Retrieval and Data Mining, developed with NSF funding, into their CS curriculum. The outcomes of the current project include the following: a set of materials for the course Intelligent Text Analysis (including presentation materials for a semester long course, notes for students, assignments, and tests); course materials for Knowledge Management Systems (including presentation materials for a semester long course, notes for students, project ideas, and detailed recommendations for facilitating student project management); a report describing research results obtained by students who participated in these classes; a report describing specific results from the three-year evaluation of these courses and the specialization as a whole (including a recommendation as to whether or not these courses should be included in the standard CS curriculum); and, assessments of the impacts of teaching methods on different types of students (e.g.: gender, age, economic status, etc.).